CAREER: Explicit geometry of moduli spaces of higher dimensional varieties

This project, within the field of algebraic geometry, focuses on varieties, that is the shapes obtained by graphing polynomial equations. If one varies the polynomial equations, for example, by modifying the coefficients in a uniform way then the shapes of the equations also vary. The goal of this project is to study how these varying shapes behave in families, and to determine their limits. For example, what shape is obtained by sending a coefficient of a polynomial to zero?. The main research objective is to compare different limits of the explicit families of shapes in a geometrically meaningful way, using a theory known as “wall-crossing.” The project also includes two educational components, the first of which is an expansion of current K-12 outreach through a local organization for San Diego middle and high school students supporting success in STEM education and careers. The other is a collaborative conference for graduate students in algebraic geometry, aimed to provide a natural scaffolding for collaborations and research development.

More precisely, the main objective of this project is to research moduli spaces of higher dimensional algebraic varieties, through applications of the theory of wall crossing. Specific goals of this proposal are to apply the ideas of wall crossing to study complete curves mapping to moduli spaces of smooth manifolds, to construct a suitable moduli space of Calabi-Yau varieties in general and certain explicit moduli spaces of canonically polarized surfaces, and to study deformation theory, with applications to moduli. The major tools that will be used are wall crossing in K-stability, a theory of moduli for Fano varieties, and KSBA moduli (named due to work of Kollár–Shepherd-Barron and Alexeev), a theory of moduli for canonically polarized varieties, along with connections between the two.